Implementation of SCEC Research for Seismic Risk Reduction

Summary. The Southern California Earthquake Center (SCEC) requests 2.6 years of funding to support
three tasks that will translate SCEC's basic-research accomplishments into products for direct use in
earthquake risk reduction. All of the tasks involve collaborations with earthquake engineers and other
end-user communities coordinated through SCEC's new Implementation Interface. A SCEC Product
Review Panel, comprising representatives from the USGS, CGS, and end-user organizations, will be set
up to ensure that SCEC activities are coordinated with the USGS and CGS hazard programs and that
products are appropriately described, documented, and disseminated.
Task 1: Produce ground-motion time histories for use in performance-based earthquake engineering
(PBEE). Ground-motion time histories are necessary input into testing facilities and computer-based
dynamic analysis of structures that engineers will use to develop PBEE. Simulated broadband time
histories are needed to augment the limited set of recorded time histories close to large earthquakes.
Under this task, we will use tested codes to produce a extensive database of simulated time histories
parameterized by magnitude, distance, and soil conditions. The database will facilitate geoscience
applications by the NEES Consortium and the three NSF Earthquake Engineering Research Centers, and
it will augment the Design Ground Motion Library Project, sponsored by the California Strong Motion
Instrumentation Project and by the PEER-Lifelines (PEER-LL) Program.
Task 2: Participate in Next Generation Attenuation (NGA) Project. The Next Generation Attenuation
(NGA) Project, co-sponsored by SCEC, PEER-Lifelines and the USGS, will develop a new suite of
ground-motion attenuation models for shallow crustal earthquakes. SCEC is already committed to the
current phase, NGA-E (Empirical), which aims to update attenuation relationships derived from recorded
strong motion data. This proposal requests support for SCEC's role in the next two phases, NGA-H
(Hybrid), which will incorporate both simulated and recorded ground motions, and NGA-F, which will
develop a tectonic-displacement model. NGA products will fulfill a clearly stated need of Caltrans, the
California Energy Commission, and PG&E, and of earthquake engineering practice at large.
Task 3: Produce Ground-Motion and Structural Simulations for Scenario Earthquakes in Los Angeles.
Recent SCEC research has quantified major potential earthquakes on the Puente Hills blind thrust system.
Task 3 will utilize this information to construct realistic scenarios for broadband ground motions from the
PHT and other hazardous sources in the LA region, and it will engage earthquake engineers in assessing
the implications. A pilot study employing J. Hall's nonlinear structural simulation code will be
undertaken to quantify the effects of a Puente Hills earthquake on buildings in downtown Los Angeles
and use the results to evaluate current code provisions.
Intellectual Merit. Reducing earthquake risk is a prime example of a system-level problem requiring
broad interdisciplinary collaboration and attention to emergent phenomena. The proposed program will
address the issues of earthquake risk reduction from this system-level perspective, and it will advance the
fundamental understanding of the relationship between earthquake source physics and resulting ground
motions -- a major goal of the SCEC research program.
Broader Impacts. The proposed program will apply SCEC basic research to guide the development of
the new ground-motion prediction models and ground-motion time histories used by researchers and
practitioners of earthquake engineering and risk assessment. Through the close coordination with NSFsponsored
earthquake engineering activities (see attached letters), this project can be expected to have a
nationwide impact on how basic geoscience is utilized to reduce seismic risk.